Physical Properties of Strongly Correlated Quantum Liquids

9411574 Wen This theoretical research will deal with strongly correlated electron systems, one of the most important current problems in condensed matter physics. Strongly correlated electron systems include high temperature superconductors, fractional quantum Hall systems and mesoscopic devices. Research will be conducted on a variety of topics including: (1) the noise spectrum of tunneling and transport of correlated electron systems in mesoscopic devices. Better understanding of noise spectrum will increase our knowledge of the response of mesoscopic devices at high frequencies. The noise spectrum is also a powerful probe of correlation dynamics. (2) the relation between the fractional quantum Hall effect and the dirty boson problem will be studied. (3) studies will be conducted on the new class of non-abelian fractional quantum Hall states. (4) in strongly correlated metals slow spin fluctuations in high temperature superconductors will be compared to slow density fluctuations in the fractional quantum Hall effect. In particular, the interaction between electrons and slow fluctuations yields Cherenkov radiation. A theory of this Cherenkov radiation will be developed for these strongly correlated metals. %%% Theoretical research will be conducted on a variety of topics dealing with strongly correlated electron systems. These systems are one of the most challenging problems in contemporary physics. Topics include the high temperature superconductors and the fractional quantum Hall effect. ***